Excellence in Research: Backreaction of Electron Excitation/De-excitation on Perovskite Lattices, Light-Induced Defect Creation/Annihilation and Charge Trap States

Nontechnical Summary
This Excellence in Research award supports computational research into the properties of a class of optoelectronic materials known as metal hydride perovskites. It also benefits students by enhancing research and teaching capabilities at Jackson State University and improves connectivity among research efforts at JSU utilizing artificial intelligence (AI). The PI aims to apply machine learning combined with computational methods to investigate how illumination by light affects the performance of the optoelectronic materials in applications including solar cells and optoelectronic devices. The project exploits AI to help inform the design of next generation perovskite materials with better properties and performance to improve the quality of human life from energy generation to medical imaging.
The research provides unique opportunities for students to participate in collaborative and interdisciplinary research, leading to a broader range of career development options. It also provides hands-on student training in AI development. Student involvement is through research modules developed in this project which may serve as platforms for training more students in the future at other HBCUs. The project helps develop the STEM workforce in a state that is sorely underrepresented in the AI area, as these students will go on to teach STEM courses in middle and high schools in Mississippi or particularly become AI engineers.

Technical Summary
This Excellence in Research award supports computational research to advance understanding of the mechanisms that degrade the optoelectronic properties of metal halide perovskites (MHPs) when illuminated by light. A new model, the L-T-A model, is being created by integrating the light induced trajectory surface hopping (LITSH) and time-dependent density functional theory plus GPW/GTH pseudopotentials (TDDFT/GPW/GTH) together with a deep artificial neural network (ANN). The resulting model can do a long-time nonadiabatic dynamics simulation for large systems. With the L-T-A model, the PI: 1) investigate the light-induced defect annihilation/creation process at low/high photon fluence in the MHP thin film; 2) shows that the excited electron produced by illumination turns an oxygen molecule into a superoxide which reduces the charge recombination time; the superoxide is then transformed into a peroxide that enhances optoelectronic properties but causes MHP degradation; 3) elucidates the impact of the light on water and MHP thin films so as to determine if low level humidity increases, but high level humidity decreases, the power conversion efficiency (PCE); and 4) characterizes how dopants in MHPs under light soaking induces shallow trap states and stabilizes the MHP structure. Starting with the L-T-A model the PI converts a complex computational project to one that is down-sized into multiple modules, each of which can be used as a standalone research topic for students. The results of the project yield insights into MHP thin films and inform the synthesis of new perovskites that may lead to technological advances such as solar cells with high PCE and photodetectors with clear digital images. This project advances application of machine learning to enable nonadiabatic molecular dynamics simulation and stimulates new ideas regarding STEM education of students through training on the application of AI to advance STEM research.